Heegaard Floer homology and Low Dimensional Topology

The main theme of this project is the application of Heegaard Floer homology
and gauge theory for problems in low-dimensional topology
and knot theory. New surgery formulas in Heegaard Floer homology allow the PI
to study applications for surgery problems in three-manifolds, and surgery
characterization for knots.In a different direction Floer homology is used to
investigate unknotting numbers for knots in the 3-sphere. The project includes
foundational problems for knot Floer homology and the study of combinatorial
techniques as well. In a different direction, gauge theoretical techniquesare used
in the search for small exotic 4-manifolds.

The project studies three and four dimensional spaces and some central problems
in knot theory and low dimensional Topology. One of the main tools is a relatively
new theory called Heegaard Floer homology. This theory has close ties to gauge
theoretical invariants that originated from interactions between Mathematics
and Mathematical Physics. It is expected that advances in Heegaard Floer homology
will lead to a better understanding of these gauge theoretical invariants as well.
Another integral part of the project is the study of unknotting numbers for knots.
While this is a classical invariant in knot theory, the unknotting process is also
relevant in the study of knotted DNA. A way to measure the complexity is to
study how many times the strand has to be cut by an enzyme and recombine itself to
be unknotted.